Catalytic Properties of Novel Metal Oxide Materials

This project comprises a systematic evaluation of the catalytic properties and potential applications of a new class of materials. These thin-shell catalysts have been the subject of much speculation, but until now proper study has not been possible. The situation has been altered by the development of a reliable and reproducible method for making these materials. They are sufficiently different from classical catalysts to make prediction of their properties uncertain, but their utility should be more apparent at the completion of this project.